NSF/Loyola University Young Scholars Project

This Young Scholars Project involves an intensive six week summer commuter course and an academic year follow-up for sixteen minority students entering eleventh and twelfth grade. The Project will be conducted primarily on the Lake Shore campus of Loyola University of Chicago, and will focus on mathematics and computer science. The summer phase involves five components: a computer science lecture and discussion course stressing mathematical investigation; related programming activity; a computer hardware design and circuitry course; a physics laboratory experience, in which students will construct PC- compatible microcomputers; and a series of career seminars involving facility visits hosted by area computer science and mathematics professionals. The academic year follow-up involves a preparation course for college entrance examinations, continuation of the integrated mathematics and computer course, and career development activities. Students will keep the computers they construct during the summer phase, and will use them for programming activities during the academic year phase.